Research Education for Undergraduates Site at the Center for Ultrafast Science

9424171 Winful The REU Site at the Center for Ultrafast Optical Science proposes to involve six new students per year in research in our laboratories. Program Participants will collaborate on project that apply the unique capabilities of intense, ultrashort optical pulses in the field of engineering, applied physics, and chemistry. ***